Efficient numerical techniques of two-phase transport model in the cathode of hydrogen polymer electrolyte fuel cell

This proposal is awarded using funds made available by the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

This project is to develop advanced numerical techniques in order to perform efficient, accurate
and state of the art simulations for two-phase transport model in the cathode of hydrogen
proton exchange membrane fuel cell (PEMFC). The computational efficiency and accuracy for
solving two-phase transport PEMFC model depends crucially on the partition of mesh for precisely
capturing the anisotropic interface of single- and two-phase zones, the design of proper
discretization schemes and efficient iterative methods for solving a highly unstable nonlinear
system due to the discontinuous and degenerate diffusion coefficient. The PI proposes to develop
anisotropic adaptive mesh techniques, and advanced algorithms in both discretization
and iteration level in order to design a better discretized model which can be solved more efficiently and accurately by iterative methods on an optimal mesh. More precisely, for anisotropic
adaptive mesh method, the PI proposes an a posteriori error estimator based on error equaldistribution
by equalidistributing edge length of finite element in Hessian matrix-metric. For the
discontinuous and degenerate diffusion coefficient, the PI proposes Kirchhoff transformation to
skillfully reformulate the original PEMFC model to a linear Poisson's equation, and Newton's
method to efficiently solve the resulting inverse Kirchhoff transformation. In particular, for the
case of wet gas channel in PEMFC, in which Kirchhoff transformation brings the discontinuity
back to the resulting Kirchhoff's variable on the interface of gas channel and gas diffusion
layer, the PI proposes Dirichlet-Neumann alternating iterative domain decomposition method
to resolve this interfacial boundary problem. On the discretization level, the PI will design a
combined finite element-upwind finite volume method to overcome the dominant convection in
gas channel of PEMFC without losing the benefits of FEM. For nonlinear iteration schemes,
the PI will employ either Picard's or Newton's method to linearize nonlinear PEMFC model,
combining with specifically preconditioned Krylov-type solver. The PI hopes to develop more
efficient and accurate numerical simulations for two-phase transport model in the cathode of
hydrogen PEMFC by uniting modern numerical techniques of adaptivity and multilevel solvers
with standard numerical methods.

Fuel cells have been called the key to abundant energy from secure and renewable sources,
e.g., fuel cells promise to replace the internal combustion engine in transportation due to their
higher energy efficiency and zero or ultralow emissions. Hydrogen proton exchange membrane
fuel cell (PEMFC) is presently considered as a potential type of fuel cells for such application.
Since PEMFC involves electrochemical reactions, current distribution, two-phase flow transport
and heat transfer, a comprehensive mathematical modeling of multiphysics system and high performance
computing combining with the advanced numerical techniques shall make a significant
impact in the development of fuel cell technology. However, because of the complexity of the underlying
mathematical model, current numerical techniques are far from being satisfactory due
to poor performances on both efficiency and accuracy. Hence, advanced numerical techniques
are urgently required to significantly improve the efficiency and accuracy of fuel cell simulation.
The proposed numerical techniques in this project will challenge a number of critical numerical
difficulties, which are caused by large discontinuity, degeneracy, nonlinearity, dominant convection
and anisotropy, by designing and analyzing the efficient numerical methods toward fast
convergence and precise solutions. The PI will utilize the proposed efficient numerical methods
to eventually develop an efficient and robust in-house code for PEM fuel cell simulations
by achieving one to two orders of magnitude improvement on the existing commercial fuel cell
packages in computational performance. The PI hopes that the proposed numerical techniques
and numerical package for PEMFC will lead to a significant progress and likely breakthrough in
the field of computational fuel cell technology, substantially impacting the commercialization of
fuel cells and further helping in the transition to hydrogen economy.